Ion Storage Ring Experiments (Physics)

Partial support is requested for exploratory work to evaluate the feasibility of atomic physics experiments at the Indiana University Cyclotron Facility's ion storage ring. The author is a member of an international collaboration formed to carry out the first approved atomic physics experiment to use a U.S. ion storage ring. The experiment involves a search for (beam-energy resonant) electron capture occurring when cooled, singly-charged helium ions collide with co-moving electrons.